Engineering Research Equipment: Acquisition of Nd: YAG Laser and CCD Camera

9412070 Richards This equipment will be used in studies of turbulent mixing phenomena (single and two phase) in nonreacting and reacting shear flows. Two major projects will extensively employ this equipment. These are: (1) droplet dispersions by large scale structures in reacting and nonreacting jets; and (2) dynamics of a scalar field in a swirling jet. Besides these two projects, it is anticipated that the equipment will provide broad support to faculty doing experimental fluid mechanics research. ***